U.S.-Taiwan Joint Seminar: Language and its PsychobiologicalBases; Taipei, Taiwan; December 28, 1992 to January 1, 1993

This is a joint seminar proposed by Dr. William Wang, the University of California, Berkeley, and Professor Ovid Tseng, National Chung Cheng University supported by the AIT (U.S.)-CCNAA (Taiwan) Cooperative Science Program. This seminar will focus on language and its psychobiological bases. The seminar will explore how language is organized within the human biological systems, with particular attention paid to the Chinese language. Three basic features of Chinese stand out in contrast with "European" language: the virtual absence of inflectional morphology, the use of lexical tones, and the morphosyllabic nature of the writing system. Most theories in the psychobiological bases of language have been primarily built on the features of "European" languages. The seminar to include Chinese can greatly broaden the bases for deducing the current theories and provide for a broad range of variations in human language. **